Postdoctoral Research Fellowship in Biosciences Related to the Environment for FY 1997

Abstract DBI 9750293 Shanna E. Carney This action funds an NSF Postdoctoral Research Fellowship in Biosciences Related to the Environment for 1997. This fellowship provides an opportunity for the Fellow to gain additional scientific training beyond the doctoral degree and to pursue innovative and imaginative into the fundamental mechanisms underlying the interactions between organisms and their environment at the molecular, cellular, organismal, population, community and/or ecosystem level in any area of biology supported by the Directorate for Biological Sciences of the National Science Foundation. Each fellowship supports a research and training plan to be carried out in a sponsoring laboratory. The research and training plan for this fellowship is entitled "Hybrid Speciation in a Young Population of Wild Sunflowers." The study population is approximately 50 years old and is composed of Helianthus annuus and H. bolanderi. Meaasurements are being made of fertility, reproductive isolation, and habitat associations of hybrids to determine if hybrid speciation has occurred and by what mechanisms.